The Physiological Role of Atriopeptin in Fish Osmoregulation

One of the most active areas of current research in endocrinology is the role that a cardiac peptide hormone (atriopeptide) plays in the control of mammalian body fluid volume and blood pressure, because of the obvious interest in the control of hypertension. Recent studies in the principal investigator's laboratory, and others, indicates that a similar hormone is produced in both the atria and ventricles of the hearts of various fish groups, and may play a role in the chronic volume and salt problems that these aquatic vertebrates face. The research involves isolation, sequencing, and synthesizing the cardiac atriopeptin from one species of teleost fish. This will enable development of antibodies to the peptide to be used in determination of the concentration of the hormone in the plasma of various fish species via radioimmunoassay, as well as distribution of the hormone in the heart and brain via immunohistochemistry. Radioactive hormone will be used to quantify the presence and binding kinetics of receptors to atriopeptin in various tissues such as the gills, gut, and kidney. Antibodies to the hormone will also be utilized to bind to, and thereby inactivate, atriopeptin in the plasma, to investigate the role of the hormone in volume and salt regulation. It is also planned to use cardiac tissue culture to determine the role of various agents (other hormones and salt or volume changes) in stimulation of the secretion of atriopeptin. The studies are intended to provide information on the evolution of the structure and function of this newly described cardiac peptide hormone.